Engineering Research Equipment Grant: Acquisition of Equipment for Imaging of Reacting Flows

Equipment funds will be used for the purchase of lasers and a UV fluorescence imaging system for characterizing the temperature and concentration fields of oxidizing species in high temperature reacting flows. The immediate application will be the characterization of the time evolving temperature, OH and O concentration fields inside a resonant dump combustor, an apparatus under evaluation as a hazardous waste incinerator. Such measurements can be accomplished nonintrusively using laser- induced fluorescence (LIF), in which an excimer laser pumps a dye laser that is tuned to a particular transition of a species that either occurs naturally in the combusting mixture, or else is seeded into the flow. In general, the intensity of the observed fluorescence is related to the temperature and density of the fluorescing species. Thus, under certain conditions, temperature and/or concentration fields can be extracted from planar images of laser-induced fluorescence.